The Hartford Alliance's Secondary Mathematics Initiative

The Connecticut Business and Industry Association (CBIA), in partnership with the Hartford Public schools, area colleges and universities, and business and industry, with support of the National Science Foundation is conducting a 3-year project to revitalize the secondary General Mathematics program. The activities proposed are intended to revise the curriculum, promote the professional development of secondary mathematics teachers, and devise new approaches to mathematics education. The general strategy is to create a core of selected members of the partnership who will be responsible for guiding the work of the project. Fifty secondary school mathematics teachers and 20 high school mathematics students will be actively involved in the project each year. Among the devices proposed is the use of business and industry members for inservice education (i.e., industrial applications of mathematics) and the creation of a Student Internship Program